Mathematics Department Computer Laboratory Improvement

This project will support the expansion of a computer laboratory which will be used to introduce science, engineering, and mathematics students to scientific computing on powerful workstations using symbolic manipulation programs and locally developed software. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the goal of improving the quality of the undergraduate curriculum by supporting projects to develop new or improved instrument-based undergraduate laboratory and/or field courses in science, mathematics, or engineering. In particular, the objective of the project is to incorporate computing into a third semester calculus course which is taken by engineering, science, and mathematics students and to improve the existing use of computers in upper division mathematics courses for students in these fields.